Meetings for Networking of Sensor Systems at Colorado School of Mines, Golden, CO

NSF Meetings for Networking of Sensor Systems

Tracy Camp
Colorado School of Mines

Proposal Number: 0451431

The proposal is about organizing a PI meeting and an informational meeting for the NeTS focus area on Networking of Sensor Systems. The PI meeting will provide PIs with an opportunity to share their research results and experiences with their colleagues. The informational meeting will help potential PIs to get background information on the focus area and on the state of sensor systems research.